SBIR Phase II: Thermoformable Technical Ceramics for Thermal Management Solutions - Scaled Manufacturing Viability

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase II project will be felt across multiple high-priority sectors of the U.S. economy, including defense electronics, medical devices, and the semiconductor packaging industry. Modern high-power electronic systems are increasingly constrained by their inability to manage heat effectively within strict size, weight, and power limitations. This thermal management bottleneck limits the performance, reliability, and miniaturization of critical systems ranging from radar and communications platforms to surgical robotics. By enabling a new class of ceramic components that simultaneously conduct heat, provide electrical insulation, and can be manufactured into complex geometries at production scale, this project addresses a materials gap that no current technology fills. Successful commercialization will reduce the cost and complexity of advanced electronic packaging, strengthen U.S. manufacturing competitiveness in advanced ceramics, a sector currently dominated by foreign manufacturers, and create skilled manufacturing jobs in the domestic advanced materials workforce. The applicability of this technology across defense, medical, and industrial markets provides multiple independent pathways to commercial impact, reducing dependence on any single sector and positioning the innovation as a broadly enabling platform for next-generation electronics design.

This Small Business Innovation Research (SBIR) Phase II project advances the manufacturing readiness of a novel thermoformable ceramic material and its associated high-temperature forming process toward commercial production scale. After firing, conventional engineering ceramics cannot be reshaped without expensive and defect-prone machining. This project is built on the discovery that a specific class of ceramic materials retains formability after firing, enabling complex net-shape components to be produced through a thermoforming process analogous to that used for high-volume thermoplastics. Phase I established the scientific feasibility of this approach, demonstrating chemically stable material compositions, binder-free spark plasma sintering achieving greater than 97% theoretical density, and independently validated dielectric performance suitable for radio-frequency applications. Phase II addresses three core technical challenges required for commercialization: scaling the manufacturing process to produce parts exceeding 1,800 cm2 at high throughput; establishing a rigorous quality assurance framework across all production stages to ensure consistent output; and certifying the material against critical specifications through independent third-party testing. Successful completion will result in the delivery of functional, large-format ceramic prototypes for customer pilot programs, a comprehensive technical data sheet, and a validated, scalable manufacturing process to establish a clear pathway from laboratory innovation to commercial production.